Collaborative Research: An integrative approach to understanding the evolution and systematics of Chalcidoidea: A recent megaradiation of Hymenoptera

Chalcidoidea (jewel wasps) are among the most species rich, ecologically important, and biologically diverse groups of terrestrial organisms. Their diversity is staggering, with more than 500,000 species thought to exist. These minute wasps (mostly 1-2 mm in size) are numerically abundant and common in almost every habitat. The smallest of these wasps are smaller than a typical single-celled organism, and yet the adults can fly, locate their hosts, deposit their eggs, and as larvae, consume their insect hosts. Most chalcidoid wasps are parasitoids; they feed on their insect hosts, eventually killing them. A few groups have also evolved to attack plant hosts and some serve as pollinators. Species attack all life stages from eggs to adults, and live and feed either internally or externally. Some are parasitoids of other parasitoids and some may even feed on their own species. Because they kill other insects, these wasps are extremely important for the control of pests of agricultural and forest crops, as well as vectors of human disease and veterinary pests. The economic importance of these wasps in pest management is unparalleled. They are widely used in biological control programs against major pests, with outcomes documented to result in decreases in pesticide, increases in yield, and in landmark cases direct savings of billions of dollars or permanent pest control. The evolutionary events leading to this enormous diversity in morphology, biology and rates of diversification are poorly understood, leading to an artificial system of taxonomic classification. In this research project, researchers will use a diverse array of molecular, morphological and bioinformatics approaches to develop a solid understanding of the hierarchy of relationships across the entire group. These relationships will then be used to reclassify major groups to reflect common ancestry, to provide a framework for a web-accessible portal to manage and deliver information on their diverse biology, and to explore the evolutionary changes that have driven and shaped this enormous radiation of terrestrial insects.

The objectives of the research project are to 1) generate a robust molecular phylogeny of the Chalcidoidea using new data from transcriptomes and targeted DNA enrichment for over 400 species, 2) generate morphological data for over 200 fossils from Eocene and Cretaceous amber and combine these with a comprehensive morphological data set for extant taxa, 3) develop a revised classification of Chalcidoidea in book form through a series of workshops and worldwide collaborations, and 4) make available information on the taxonomy, biology and distribution of over 31,000 available names and information in over 40,000 references. The project will train two postdoctoral researchers, one graduate student and several undergraduates. To involve the wider scientific community, a worldwide group of biocontrol researchers and taxonomists will develop a new classification for Chalcidoidea. With groups of Research and Extension Specialists, the project will develop posters, fliers, specimen education kits, and other educational materials for use in the classroom and by extension specialists, agricultural advisors, master naturalists and master gardeners, and the general public to develop a greater interest and understanding of this charismatic and and important group of insects.